Industry/University Cooperative Research Center for Electronic Materials, Devices and Systems

ABSTRACT
EEC-9906766
TAYLOR

This award funds a six-year continuing award for the second life cycle of the multi-university Industry/University Cooperative Research Center for Electronic Materials, Devices and Systems at the Texas A&M University (as lead), the University of Texas-Arlington and the University of North Texas.

The research activities of these three sites are complimentary and this operation will enable the Center to expand its research activities and enrich their industrial membership base. This consolidation Center has expertise in bulk single and thin film growth, exceptional characterization and process modeling of electronic materials, Molecular Beam Epitaxy (MBE), and Pulsed Laser Deposition (PLD) for the production of multi-layer and heterostructure devices, rapid thermal processing, fabrication, and evaluation of devices (fiber-optic sensors, integrated optics, semiconductor lasers, microwave and millimeter wave circuits and devices, superconductor devices, ferroelectric devices and optical instrumentation), device modeling and simulation.